Vacuum Plasma Spray Processing

Vacuum Plasma Spray (VPS) processing of materials is rapidly emerging as an innovative technique for the formation of novel protective coatings and free standing forms. This method of materials fabrication enables the rapid-solidification-rate (RST) processing of compounds (e.g., BN, TiB2), reactive metals (e.g., Zr, Hf, Ta, Ti), and high temperature metal alloys (e.g., based on Ni, Co, Cr, and Fe) for a wide range of applications. Although the plasma processing is expanding beyond turbine technology, there is very limited information available as to the relations between VPS processing, microstructure, and properties. The overall goal of this project is to examine VPS with the intention of optimizing the spray parameters through the evaluation of the quality of the coating. A wide range of characterization and test methods will be employed to gain an understanding of the key process variables and how their control can be employed to obtain deposits of high quality.